Dynamic Programming, Theory and Practice

This research will focus on dynamic programming. Algorithmic solutions of certain important recurrences with applications to molecular biology, geology, and speech recognition will be investigated. These recurrences can typically be solved with a simple dynamic program: in this work more sophisticated algorithms will be developed so as to solve these problems more quietly and with lower storage requirements. In addition, parallel computation techniques will be developed and applied to these problems.